Basic Technology Concepts Laboratory

This project is developing the Basic Technology Concepts Laboratory. The laboratory is being incorporated into the Fundamentals of Technology and Technology Applications courses. The laboratory is serving as the cornerstone for hands-on learning activities in the planned Engineering-Preparatory program. The laboratory includes equipment and activities related to basic engineering principles, including rate, resistance, energy, power, momentum, waves, and vibrations, and activities dealing with advanced topics such as alternate energy, optoelectronics, lasers, telecommunications, and instrumentation and control. The laboratory is also being used for summer workshops for secondary students and in-service teacher training activities. *